Atomistic Studies of Reactions on Surfaces

Abstract
CHE-0513936
Madix/Harvard

With the support of the Analytical and Surface Chemistry Program, Professor Madix and his coworkers at Harvard University are investigating the effects of the two dimensional organization of species adsorbed on metal surfaces on surface reactivity. Scanning tunneling microscopy, coupled with photoelectron spectroscopy, infrared, and temperature programmed desorption are used to examine the local spatial and temporal distribution of surface modifiers and reactants. Three particular issues are addressed; the incorporation of metal atoms in to the structure of reaction intermediates, the surface structures formed in epoxidation reactions on silver, and the origin of autocatalytic reactions on metal surfaces. This work provides fundamental information about the dynamics of heterogeneous catalysis, a process of immense commercial importance.

Professor Madix and his coworkers at Harvard University are studying the effects of surface spatial organization on the kinetics and dynamics of surface reactions. Using microscopic and spectroscopic methods, they are addressing specific questions of intermediate formation, autocatalysis, and epoxidation mechanisms on well characterized surfaces. This fundamental information strongly adds to our understanding of heterogeneous catalytic processes.